Group Actions, rigidity and geometry

Abstract

Award: DMS-0541917
Principal Investigator: David Fisher

The proposed research lies between dynamical systems and
geometry. Work of Furstenberg, Mostow, Margulis and others shows
that certain dynamical systems are an important tool for studying
geometric properties of important geometric spaces, particularly
symmetric and locally symmetric spaces. . One important property
of symmetric spaces is that they have non-positive curvature. The
investigator plans to extend this work in several inter-related
directions. The study of symmetric spaces will be generalized to
include more general spaces of non-positive curvature as well as
more general maps between spaces with an emphasis on infinite
dimensional spaces. The investigator will attempt to exploit
these relationships to prove long-standing conjectures of
Zimmer. The group of diffeomorphisms of a compact manifold acts
on the space of square-integrable Riemannian metrics, which is
naturally an infinite-dimensional space of non-positive
curvature. In previous work the PI has extensively studied
dynamics of certain groups acting on ``flat" infinite dimensional
spaces, and some present work can be viewed as generalizing those
result to spaces that have curvature. Typically if one is a
perturbing a dynamical system one already understands, the study
of nearby dynamical systems can be reduced to properties of a
flat infinite dimensional space. However, if one wants to
classify dynamical systems which one does not assume are
perturbations of ones that are well-understood, one is forced in
a space that has curvature.

Dynamical systems is a young and important field of mathematics
that investigates the evolution of physical or mathematical
systems over time (e.g. fluid flow) while differential geometry
is a more classical field that tends to study static
configurations of curves and shapes in space. New ideas from
dynamical systems theory such as chaos and fractals have had a
profound impact on our perception of the world. One of the
deepest and most influential mathematical applications of
dynamical systems has been to the study of geometric properties
of spaces with "many symmetries". The PI's research can be viewed
as part of a general development in modern mathematics in which
ideas from dynamics and differential geometry interact to lead to
both proofs of old conjectures and exciting new discoveries. A
key idea that appears repeatedly is that spaces that possess many
symmetries must actually be homogeneous, i.e. any space with
enough symmetry actually looks the same at every point. The PI's
work on these topics has relationships with diverse areas of
research including computer science (expander graphs and property
(T) of Kazhdan) and celestial mechanics (KAM theory and stability
of the solar system).